Workshop on Artificial Life and Evolutionary Biology on Feb. 18-20, 1994 at the Santa Fe Institute, Santa Fe, NM

9320463 Langton This award will provide support for a workshop on artificial life and evolutionary biology, to be held at the Santa Fe Institute, Santa Fe, NM, on February 18-20, 1994. The workshop will explore how artificial life techniques (i.e. computational techniques) can most effectively be used to address problems in evolutionary and population biology. The results of the workshop will be published in technical reports and in articles to journals. ***